U.S.-Hungary Workshop on Environmental Chemistry (Balaton, Hungary, September 5-8, 1993)

INT 9312656 Fendler This US-Hungary workshop on "Environmental Chemistry," organized by Dr. Janos Fendler of Syracuse University and Dr. Imre Dekany of Attila Jozsef University, Hungary, will be held in Hungary during September 5-8, 1993. The workshop will bring together ten Hungarian scientists and engineers with ten from the United States to define an agenda for future, long-term cooperative research that will address environmental problems. Efforts of the participants will directed toward those pollution problems which may be defined as chemical reactions, governed by fundamental molecular interactions. The goal of this workshop is to stimulate new cooperative research that bears upon the fundamental issues affecting environmental problems. The research agenda to be formulated during the meeting will draw upon multiple disciplines in chemistry and examine problems from the theoretical, computational and experimental perspectives. While the workshop will be organized by the United States and Hungary, other participants from France, the Czech Republic, the Slovak Republic, Bulgaria, Romania, and Poland will participate. The intent is to involve chemists throughout the region in early stages of planning cooperative research with the hope of strengthening professional ties that cross national boundaries. Results of the workshop should include new competitive, proposals for joint research in environmental chemistry and an invigorated, better coordinated multi- national approach to examining chemical solutions to basic environmental problems.